7 TESLA/90 CM BORE MRI/Spectroscopy System

9907842

Kamil Ugurbil

This grant involves funds for the purchase of a 7 Tesla/90cm bore NMR imaging/spectroscopy instrument for the Center for Magnetic Resonance Research (CMRR) at the University of Minnesota. Only recently has it been possible to develop the necessary instrumentation and methodology, explore the potential and establish the advantages of the higher fields to extract complementary functional and biochemical information. A significant part of that work was realized at the CMRR. The 7T/90 system will enable a major lead in these developments and provide a mechanism by which this unique instrumentation, spin-physics methodology and expertise are available to researchers in the USA and elsewhere.

Unraveling the mysteries of the human brain represents one of the great challenges of modern biology. Recently, developed functional magnetic resonance imaging (fMRI) has provided a unique capability towards meeting this challenge. Further developments to improve sensitivity, spatial specificity and spatial resolution and extend the methodology to temporally resolved true single event related studies require higher neuronal activation and significant increases in the magnitude of the inherently weak signal changes that are used in fMRI. In going to 7 Tesla, these combined gains are expected to catapult this methodology to a level that is significantly beyond what is currently available. Equally important are recent efforts relying on detection of key intracellular bioenergetics and neuronal activity. However, additional gains in sensitivity and spectral resolution available at 7T are needed to make a significant impact on the biological problem.